Estimation and Structural Analysis of Image Motion Using Weak Solution-Based Spatio-Temporal Features

Time varying images are analyzed to quantify the motions of multiple objects in the images. The approach, using distributed parameter systems theory, represents a region-oriented rather than a point-by-point approach to image analysis.